Southeast Regional Technical Assistance and Information Workshop for Minority-Serving Institutions To Broadening Participation in the National Science Foundation’s Division of Rese

0948165
Thompson

This is a request from Spelman College to conduct a 1.5 day regional technical assistance and information conference/workshop for Minority Serving Institutions (MSIs) to broaden their participation in the Division of Research on Learning in Formal and informal Settings (DRL) programs. Spelman College will invite accredited minority-serving institutions (MSIs) to participate in the workshop/conference who have not submitted proposals and/or have been unsuccessful in DRL proposal competition. The workshop will consist of approximately fifty 2-person faculty institutional teams consisting of a faculty member from an education specialty relevant to DRL programmatic activities, and a faculty member in a science, technology, engineering and mathematics (STEM) field supported by the National Science Foundation in order to develop their research or program ideas and to become more skillful in the preparation and development of competitive proposals.